Sequencing Gators: Building a Genome Science Curriculum at the University of Florida and Beyond

Building on a CCLI Phase 1 program that integrates genomic science via the development of a nonmajors introductory genomics course and an advanced level, capstone course, Bacterial Genome Sequencing and Analysis, this Phase 2 vertically integrates bioinformatics and genomic science with the formation or enhancement of seven courses for undergraduate biology students at the University of Florida (UF). An interdisciplinary team from four different departments (Microbiology & Cell Science, Computer Science & Engineering, Statistics, and Zoology) are working together to develop these courses ranging from an introductory level Biometry course to an advanced level course, Programming for Biologists. The impact of these curriculum improvements is extended to neighboring community college partners Brevard Community College, Indian River State College, and Miami Dade College using an online distance platform made possible with Elluminate and course management system technology. All of the modules and courses at UF use a computer classroom, and they are to be part of a new genome science certificate program. Workshops are offered to both the 4-year and 2-year faculty who are interested in teaching the modules or courses.